Proposal Processing, Data Entry Support, and Special Assistance for the Multilingual Information Access and Management Initiative and Human Computer Interaction Program

Proposal Processing, data entry and special assistance for the Multilingual Information Access and Management.